Proposal to Develop OECD Case Studies

The Organization for Economic Cooperation and Development (OECD) is carrying out a series of case studies in science and mathematics education as a part of its continuing concern to provide more effective instruction for all of its populations. As the international community becomes more interdependent, not only in economic activity, but in terms of environmental and other concerns, the degree of commonality held by the developed countries in particular becomes more and more evident. A key assumption of the OECD Case Studies Project is that the context, characteristics and implementation of an innovation that is interesting and important in one country will in many instances be significant in other nations, as well. The proposed project will carry out up to ten case studies in science, mathematics and technology education. The studies will be selected with a view to representing exemplary practice in the United States. The framework for the studies has been devised by science, mathematics and technology education experts at OECD conferences (attended by U.S. specialists). The actual work will be carried out in the United States by the co-principal investigators and their associates, with the advice of a panel of nationally recognized experts in science, mathematics and technology education.